I-Corps: Translation potential of an Artificial Intelligence (AI) platform for power system decision making

This I-Corps project is based on the development of an artificial intelligence (AI) platform for power system decision making. Electric power systems are increasingly exposed to extreme weather events and surgent loads from electrification of transportation and buildings, which amplifies sensitivity of electric demand to near-surface meteorological conditions. Utilities, Independent System Operators (ISOs), and planners rely on weather-driven load forecasts to support real-time operations, resource adequacy, and long-term infrastructure planning. However, most existing load forecasting tools depend on coarse-resolution meteorology, short forecast horizons, or statistical post-processing approaches that fail to capture compound events, tail risk, and non-stationary weather behavior that increasingly drive peak demand and reliability challenges. This technology addresses a growing national need for weather-informed load forecasting and demand risk management. Electrification of transportation and heating combined with extreme events are increasingly stressing the power systems and amplifying the consequences of forecast error. Improved representation of peak and tail demand risk may reduce outage impacts, support more efficient infrastructure investment, and enhance system reliability under increasing weather uncertainty.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of a physics-based, weather-informed, artificial intelligence (AI)–supported load intelligence platform for power system decision making. The core technology is the systematic translation of high-resolution, physically consistent atmospheric simulations into decision-ready energy load forecasts and peak demand risk metrics across operational, planning, and investment horizons. Rather than treating weather as an external input to energy demand models, the platform integrates high-resolution atmospheric dynamics and AI directly into load-relevant representations, preserving physically realistic correlations between temperature, humidity, surface energy balance, and electric demand. A distinguishing capability is its ability to explicitly simulate future electrification pathways alongside weather variability within a unified physical framework. Electrification of space heating, cooling, and transportation increases both the magnitude and temperature sensitivity of electric demand. Using this platform, electrification penetration rates can be represented through scenario-based modifications to end-use load characteristics, such as heating technology adoption, building thermal response, and temporal load profiles, while atmospheric forcing is varied consistently across historical, near-term, and future weather conditions. This technology enables systematic evaluation of how different electrification trajectories interact with mean and extreme weather to shape peak demand, load variability, and reliability risk.